Comprehensive Study of Direct Photon Production in Hadron Induced Collisions (U.S.-India Cooperative Research)

9505948 Peoples This is a third year funding for a project previously funded under grant INT92-05923. The project allows for participation by Indian scientists and graduate studentq in Fermilab experiment E706. The Indian cooperating scientist is Dr. Ram Shivpuri, Department of Physics at Delhi University. The project has been active for the last two years, and has resulted in important publications by the collaborating U.S. and Indian scientists. ***